The Local, National & International in Biodiversity Conservation: A Transnational Comparison

This is a project to compare two efforts at biodiversity conservation underway in two quite different sociopolitical settings. One of the cases involves the Kenya Wildlife Service (KWS), a state corporation responsible for administering all of Kenya's protected areas and all its wildlife outside protected areas. The other organization is the Malpai Borderlands Group (MPG) in the Southwestern United States, an nonprofit organization dedicated to conserving the undeveloped wildlands and rangelands of the Southwest and to preserving the traditional ways of life of such regions. Both agencies work in highly charged environments, negotiating among powerful and strongly-held interests. Both organizations must also transmit, translate and reformulate scientific and policy concerns expressed at the global, national, and local levels. This project will examine how this is accomplished and with what level of success in two quite different national contexts. <í